Conference on Modeling High Frequency Data in Finance II

This award provides funding for the second edition of the Conference on Modeling High Frequency Data. This year the conference is a joint effort between Stevens Institute of Technology, University of Texas at El Paso and Purdue University. The purpose of the conference is to improve the models used to analyze data sampled with high frequency. Tools available from a variety of areas such as statistics, stochastic processes, statistical mechanics, clustering, and systems will be exposed. Academics, industry professionals, and government regulators will meet to collaborate, with the goal of advancing the quality of research currently under development in the field.

The scientific motivation for the conference arises from the fact that organizing a conference in the trade capital of the world has the potential of bringing together the best mathematicians, practitioners and regulators to help develop and better the modeling aspect of the marketplace.

The main training objective of this meeting is to expose today's economic and modeling problems to current graduate students in the hope that this will improve the quality of their research problems.